U.S.-Australia Cooperative Research: Chaos Synchronization and Nonlinear Observer Design

9987317
Jiang

Understanding chaotic phenomena and controlling chaos to our advantage requires a combined effort of researchers from the fields of mathematics, physics, engineering and biomedical science. New tools for guiding or ordering chaos will be extremely useful for many important application problems arising from the power industry, chemical reactions, electrical and electronic engineering, biological systems (for example, controlling chaos in the human brain and heart, and perceptual processes). Our experience in control theory and applications will be valuable for realising the objectives of this project on chaos synchronization and nonlinear observer design. Both sides will work closely on many topics of common concern and develop systematic methods of chaos prediction and synchronization. We will validate our results via practical applications to secure communication problems. The Australian counterpart is Iven Mareels, Professor and Head of the Department of Electrical and Electronic Engineering, Melbourne University.